Improvement in Basic Engineering Education Through Computer Aided Design and Drafting

A computer-aided design and drafting, CADD, system is being developed for use in the undergraduate curriculum in basic engineering at Fort Lewis College. The CADD approach is being used to varying degrees in different classes (e.g. as a primary apparatus in drafting courses; as a secondary learning aid in mechanics). In this way, undergraduate instruction is being modernized and strengthened, so that undergraduate students in engineering will be prepared for further education and careers in engineering.